A High Precision, Six Degree-of-Freedom, Single-Sided, Noncontact, Optical Sensor Suitable for Assembly Automation

This work is designed to develop and demonstrate a non- contacting sensor with sub-micron precision and resolution. It will be capable of measuring three linear and three rotational parameters, giving it six degrees of freedom capability, while being located entirely on one side of the target. This device will consist of several lateral effect photodiodes and several light sources which will all be incorporated into a unique arrangement in a single package. No such device exists today. This device, if successful, will be a significant advancement in sensor technology and should be very cost effective. It will have potential applications in a whole spectrum of manufacturing situations with a major impact on Metrology and Inspection.